Software Capitalization: CAD Tools for VLSI Circuit Testing

Ha Four fault simulators and automatic test pattern generators (ATPGs), produced in research projects at the Virginia Polytechnic Institute, are being developed and enhanced so as to bring them into a state for distribution to general users. These tools are: 1. FSIM, combinational circuit fault simulator; 2. HOPE, a synchronous sequential fault simulator; 3. ATALANTA, an ATPG for stuck-at faults in combinational circuits; and 4. SOPRANO, an ATPG for stuck-open faults in combinational circuits.